Teaching Software Engineering Using Lightweight Analysis

Computer Science (31)
We are exploring a new pedagogical approach to software engineering education which seeks to integrate analysis tools with instruction in programming methodologies. Instead of learning methodologies as abstract ideas, students directly benefit from applying analysis tools that embody methodologies to large, realistic programs.

The approach focuses on using lightweight analysis tools that offer to the students clear and immediate benefits with minimal initial costs. The tools help students understand information hiding, invariants, memory management and security within the context of full industrial scale programs.